21st Century Ionospheric Research using the Cornell University Portable Radar Interferometer

Abstract: ATM-0075241

"21st Century ionospheric research using the Cornell University portable radar interferometer"

Swartz, Wesley E., Cornell University

This award addresses the application of a portable interferometer VHF radar (known as CUPRI), presently located in Puerto Rico, to the study of geomagnetic field-aligned irregularities in spread F and sporadic E. This work would be a continuation of the present series of observations combined with analysis directed to the understanding of the causative factors underlying the formation of these irregularities. These ongoing measurements would be supplemented with coordinated campaigns with the Arecibo Observatory incoherent scatter radar observations of the winds of the lower thermosphere region. This award would also undertake significant upgrades of the data acquisition component combined with field tests with the aim of improving the temporal and spatial resolutions of these observations. Further analysis of the Brazilian set of measurements would be undertaken to compare equatorial results with those obtained in Puerto Rico.